Dissertation Research: Insect Species Diversity on Patchy Ephemeral Resources: A Field Test of Patch Dynamics Coexistence Models

This project tests the predictions of 'patch dynamics' community ecology models at the level of the whole community. It will help explain the diversity of insect communities and the evolutionary diversity of insects as a whole. 'Patch dynamics' models describe how dispersal, intra-specific aggregation, and disturbance allow competing species or predator and prey species to coexist on patchy ephemeral resources. Two specific questions will be answered: 1. Does community species diversity increase as the spatial patchiness of a resource is increased? 2. Does community diversity increase over several generations as the temporal discontinuity of the resource increases? Three experiments will manipulate laboratory-grown mushrooms as a patchy ephemeral resource for insects. The first experiment will determine the length of exposure that will give maximum insect diversity on mushrooms in the other experiments. The second experiment will compare the diversity of insects supported by a standard mass of mushrooms divided into either one, four, or sixteen patches. The third experiment will compare diversity over several generations between identical spatial arrays of mushrooms that are renewed at different temporal intervals.